The U.S.-Korea Joint Workshop on Recent Developments in Reliability Theory and Its Applications

0244300
Pham

The proposal requests support for 11 U.S. participants to a 3-day workshop to be held in Seoul, Korea. This U.S.-Korea Joint Workshop is about reliability. The workshop aims to bring researchers and practitioners from the U.S. and Korea to sharee the latest development and research activities to all areas of reliability engineering for a broad range of applications. The workshop covers both fundamental and theoretical work in the areas of reliability including optimization, muti-state systems, accelerated life testing, etc. The U.S. participants include eight junior faculty members and two graduate students.